Presidential Awards For Excellence In Science, Mathematics and Engineering Mentoring.

9612427 Bustoz Bustoz is Professor of Mathematics at the Arizona State University. One of 27 Mexican American Ph.D. holders in the Nation in Mathematics, Bustoz has demonstrated outstanding breadth and depth in improving mathematics and science education for underrepresented students. He has established and/or provided: Mentoring programs for underrepresented minority precollege students living in urban areas and on Arizona reservations to study mathematics -- his outreach has grown from ten (10) students in 1985 to currently over 200 minority students participating in the ASU Mathematics/Science Honors Program (MSHP)each summer, with over 1,000 students having completed MSHP since 1985; Significant individual and institutional impact -- one-third of mathematics majors at Arizona State University are minorities (primarily Native Americans and Hispanics), an unusually high rate, especially since 86% of the students are non-minority; ASU now leads the nation in the number of minority mathematics majors; approximately one-half of his students have obtained degrees in mathematics, science, or engineering fields; from the initial effort with MSHP, Bustoz has created additional outreach programs that are now housed collectively in the Institute for Strengthening Math and Science SUMS ) Enhancement programs for American Indian teachers and teacher aides -- e.g. Pimas and Papagos Gila River Indian Reservation, and Navajos from Window Rock where he directs a Young Scholars Project, now in its seventh year; Activities to increase the ranks of minority teachers, such as encouraged use of Arizona s Alternative Certification -- approximately 10 minority mathematics majors enter the teaching profession annually and return to the high schools from which they graduated, including some of the lowest income schools in Phoenix; Role models for Spanish-speaking students -- by bringing Spanish- speaking mathematicia ns and graduate students from the U.S. and abroad to study and teach at ASU; Technical advice to mathematicians to replicate and adapt his work, e.g., replication of MSHP in South Dakota, where recruitment from a nearby Sioux Reservation takes place; and Advice to launch the Strengthening Underrepresented Minorities in Mathematics Program of the Mathematics Association of America. 9612398 Gutierrez Gutierrez is Professor of Chemistry and Director of both the National Institutes of Health (NIH) Minority Access to Research Careers (MARC) and the Minority Biomedical Research Support (MBRS) Programs at California State University at Los Angeles. His accomplishments include: Significant impact on minority student college and university education through his work on NIH funded projects -- over 180 students mentored by him through these programs or his role as a faculty participant in other department projects such as the NSF Research Improvement in Minority Institutions (RIMI) and Research Experiences for Undergraduates (REU) Programs; Significant institutional impact -- the American Chemical Society (ACS), in great part through his effort, established the Committee on Minority Affairs in 1993 with Gutierrez serving as its first chair, which in turn established the ACS Minority Scholars Program, a $5 million scholarship program for undergraduates; and the establishment of the ACS Award for Encouraging Disadvantaged Students to Pursue Careers in Chemical Sciences. -- as Vice Chair of the National Academy of Science Committee on a National Scholars Program, under contract to NASA, he has articulated persuasively the responsibility of all faculty, but especially science faculty, to seek out talented minority students and encourage their academic development very early in their undergraduate career; and Beyond individual students, Gutierrez has effected an entire cohort of future science professionals. 9612453 Bagayoko Bagayoko is Professor of Physics and Chancellor s Fellow at Southern University. His accomplishments include: Establishment of the Timbuktu Academy, which has a summer program for 100 plus middle and high school students annually and an academic year program for undergraduates, and is nationally recognized as an exceptional program for mentoring minority students in SEM disciplines -- Bagayoko has intensively mentored over 200 students through the Physics Department and the Academy since his arrival at Southern in 1984; Demonstrable student outcomes -- among Academy students, two have received the University s highest academic awards, University Grand Marshals; two have received Ph.D.s in Physics and five others are completing their Ph.D.; 10 students have received the M.S. degree in Physics; many of these students are themselves making meaningful contributions to science and society; Significant institutional impact and replicability -- started in Physics, the Academy program has expanded to Chemistry and Engineering; while Southern is a predominantly Black institution, students from a variety of backgrounds have been included and succeeded in his program, e.g., Asian, Hispanic, and Caucasian; and Strong testimonials from current graduate students about the influence of Bagayoko personally and the Academy program on their academic and career pursuits. 9612399 Herman Herman is Associate Professor of Environmental Sciences at the University of Virginia and has established herself firmly as a role model and mentor for geoscientists and geoscience educators at her home institution and more broadly. Nominated by the Association of Women in Science, her accomplishments include: Advising approximately 55 students of which 40% are women, four of whom were mentored to the Ph. D. level, 17 to the M.S. level, and two at the B.S./B.A. level; An excellent publication record in environmental geochemistry, strong service on a number of national committees and on several editorial boards; emphasis of research experience in her mentoring of women and minority students; Innovative science teaching approaches at all levels -- has developed an effective videotape aimed at helping Earth Science teachers cover the topic of Groundwater effectively; is a resource for geoscience education for much of the primary school system in Charlottesville and surrounding counties; Creation of the Program for Interdisciplinary Research in Contaminant Hydrogeology (PIRCH), which has resulted in significant NSF Traineeship and University of Virginia Academic Enhancement Program support, especially for women and minority graduate students; and Strong letters of support from students. 9612459 Robin Robin, a retired chemist from A.T.& T. Laboratories, has served as a volunteer at Science High School, a small, public magnet school in a large urban city, Newark, N.J. since 1991. His accomplishments include: Establishment of the Student Independent Research Program, which engages interested students in the pursuit of long-term science research projects and encourages them to enter state and national competitions such as the New Jersey Science Fair, Rutgers University Junior Science Symposium, NAACP ACTSO, National Black Chemist and Chemical Engineers Science Bowl; Secures grants to maintain the program, which is not maintained by the school district -- project SEED, an American Chemical Society grant, and A.T.& T. Minority Grants program; Directs his own funds into the program; Spends countless hours coaching, mentoring,